Ergodic-Theoretic Properties of Actions of Discrete Groups

In this project, the PI will study the actions of Lie groups and their discrete
subgroups from ergodic-theoretic point of view. Note that only few results
about statistical properties of orbits of large nonamenable groups are known.
A part of this project addresses the question about the distribution of
orbits of lattices in Lie groups acting on homogeneous spaces. The methods,
which utilize the equidistribution properties of unipotent flows (due to Ratner
and others), apply to a large variety of natural actions of lattices. Since
the methods based on the Ratner theory do not provide effective estimates
on the rate of convergence, it is intended to develop a different approach
that gives effective error terms. The expected results of the proposal have
several potential applications to number theory. In particular, we plan to
investigate distribution of values at integer points of systems consisting
of linear and quadratic forms. Another direction of research is the study
of mixing properties of large groups of automorphisms of nilmanifolds.

The main objective of this project is to investigate distribution of orbits
of large discrete and continuous groups of motions on various spaces.
Questions about asymptotic distribution of families of mathematical objects
appear in many different areas of mathematics: ergodic theory, number theory
(e.g., distribution of prime numbers), geometry (e.g., distribution of closed
geodesics on a compact surface), PDE (e.g., distribution of eigenvalues of the
Laplace operator), and others. When a family of the objects exhibits very
complicated behavior, statistical properties of this family provide important
insights into its structure. In this project, we use methods of the theory of
dynamical systems to derive results in number theory on the distribution of
integer points. Our study uncovers promising interplay between ergodic theory
and number theory simultaneously enriching both of these areas of research.
This subject and its connections with many other branches of mathematics
provide an excellent introduction for graduate as well as undergraduate
students to active research and can be used for presentations accessible to
audiences of different levels.